University of Georgia Middle Grades Teacher Education Project

The University of Georgia will develop a four-year model program for the preparation of both middle school science and middle school mathematics teachers. The proposed effort involves the development of new content courses in both science and mathematics, and the development of innovative "parallel" methods courses for each content course. Each science teacher will complete 35 quarter hours of science content and 15 quarter hours of science education; each mathematics teacher will complete 30 quarter hours of mathematics content and 25 quarter hours of mathematics education. Each student will also complete an innovative course focusing on writing, with special emphasis on mathematics and science. The proposed program represents a cooperative effort involving scientists, science educators, mathematicians, mathematics educators, teacher educators, and public school personnel. This program will prepare a teacher who has both content knowledge and knowledge of and skill with methods of teaching middle school children. Numerous practicum and clinical field experiences are provided through the program.